A Fundamental Investigation of the Role of Interfaces in the Deformation and Failure of Superplastic Ceramics

This is a proposal for a research program to study the role of interfaces in superplastic deformation and cavitation failure in ceramics. Superplastic forming offers the potential for near-net- shape processing of relatively complex shapes from viable structural ceramics. The propensity to cavitate during deformation, however, is one aspect of superplasticity that need to be better understood for this technique to gain prominence in ceramic processing. The proposed research addresses the critical issues relating to the cavitation problem. The PI intends to study the nucleation and growth of cavities during superplastic deformation as a function of the properties of the grain boundary phase. The research will include the in-house processing of controlled microstructures for the superplastic deformation studies.